PostDoctoral Research Fellowship

This award is made as part of the FY 2013 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Elliot Paquette is "Eigenvalue Fluctuations, Spectral Gap, and Their Applications." The host institution for the fellowship is the Weizmann Institute of Science, Mathematics, and Computer Science, and the sponsoring scientist is Dr. Ofer Zeitouni.

The funding for this award is provided by the International Postdoctoral Research Fellowship Fund of the NSF Office of International Science and Engineering.